Orthogonal and Symplectic Random Matrix Ensembles: Universality and Asymptotics of the Partition Function

Abstract
Gioev

The PI will work on four problems, all of which involve asymptotic
techniques developed in Random Matrix Theory (RMT). Problems I and II
are concerned with the proof of universality for orthogonal and
symplectic ensembles of random matrices with varying polynomial weights
on the line, and with polynomial weights on the half-line, respectively.
Problem III deals with the rigorous proof of the asymptotic expansion
for the partition function (free energy) for orthogonal and symplectic
ensembles with varying polynomial weights on the line which has
applications in graph enumeration problems arising in 2D quantum gravity
and string theory. Finally, Problem IV concerns proving various
asymptotic formulae for the entanglement entropy of fermion systems on
the lattice and in the continuum (this problem has connections with
RMT).

Over the past fifty years it has become clear that Random Matrix Theory
(RMT), initially introduced into the theoretical physics community by
Wigner in 1950's as a model for the scattering of neutrons off large
nuclei, has a long and extraordinarily varied list of applications not
only in physics, but also in pure and applied mathematics, and in other
sciences, such as cardiology. More precisely, it turns out that (the
statistical properties of) various seemingly unrelated objects, such as
vibration frequencies of elastic plates, bus arrival times when the
drivers try to optimize the traffic flow, zeros of the Riemann zeta
function, the distribution of phone numbers in a large phone directory,
and heartbeat peaks, for example, are all remarkably well-described by
eigenvalues of a large random matrix (RM). The fundamental question is:
Why does RMT model such a broad variety of phenomena? The answer is that
there should be certain limiting distribution laws for the eigenvalues of
large RM's that are independent of the precise distribution of the matrix
ensembles. This loose statement is known as the Universality Conjecture,
and it can be viewed as an analog of the Central Limit Theorem in
probability theory, but now for certain classes of correlated random
variables (which are the eigenvalues of a RM). Universality questions
arose very early on in RMT, and universality is widely believed to be
true. However, a mathematical proof of universality for the so-called
unitary ensembles was found only in the late 1990's. The PI and Deift
have very recently proved universality in the remaining two cases, viz.,
the orthogonal and symplectic ensembles, in great generality. Problems I
and II, which deal with continuation and extension of these results,
will significantly extend our understanding of universality to the
important case where the underlying equilibrium measure consists of more
than one interval. The asymptotic expansion of the partition function
for the three types of RM ensembles has important applications in
mathematics and also in 2D quantum gravity and string theory. Very
recently, in the unitary case, the expansion was rigorously established
by Ercolani and McLaughlin. In Problem III, the PI plans to prove
rigorously the expansion for general orthogonal and symplectic
ensembles. This will have implications in 2D quantum gravity models
which are not covered by the unitary case. In the emerging field of
quantum computation, a subject currently of great interest, one of the
basic quantities of study is the so-called entanglement entropy which
measures the number of maximally entangled pairs that can be extracted
from a given quantum state. In Problem IV, the PI plans to prove various
results concerning asymptotic expansions of the entanglement entropy for
fermions as the size of a subsystem becomes large. These results will
considerably extend the understanding of the entanglement entropy for
the lattice and also continuous fermion systems in higher dimensions.